Group Travel for U.S. Participants in the XVI World Congress of Sociology, Durban, South Africa, July 23-29, 2006

SES-0548370
American Sociological Association

The project provides funds for a group travel grant for U.S. sociologist to attend the XVIth World Congress of the International Sociological Association in Durban, South Africa, July 23-29, 2006. The major conference of the International Sociological Association, the World Congress occurs at four-year intervals and attracts approximately 5,000 participants. Travel support to the ISA World Congress will enable U.S. sociologists at all career stages to participate in an international conference that fosters scientific communication, research, and exchange. An activity of this type is particularly timely given the necessity to promote international collaborations on challenges arising from global social processes and transformations, including those stemming from global interconnectedness, new technologies associated with the internet, and the growing hybridization of cultures. The grant will ensure a presence at the World Congress of junior scholars and sociologists underrepresented in international scholarly meetings. NSF's Office of International Science and Engineering provided additional funds for this award, specifically to strengthen US-Africa collaborations in Sociology.